Organizational Characteristics Which Facilitate Major Discoveries in the Bio-Medical Sciences

The goal of this project is to explain how the characteristics of research organizations, and their departments and laboratories, facilitate or hinder the making of major discoveries in biomedical science. The project focuses on four types of research organizations (universities, free-standing research institutes, medical centers and industrial firms) in three countries (Britain, France and Germany) during the past century. Drawing on a four-year pilot study of U.S. research organizations, the investigators propose that the following organizational characteristics are critical for making major discoveries: diversity and depth of scientific expertise, quality of scientific personnel, differentiation of research into separate departments, integration of scientific diversity, hierarchical coordination, and leadership capacity for effecting the necessary integration. The central insight is that major discoveries tend to occur in organizations that facilitate intense and frequent interaction across diverse fields of knowledge. By extending the research to Europe, the investigators can test the validity of findings from the U.S. pilot study in contexts that offer considerable variation along the major dimensions of the proposed theory. To test the theory the project will rely on Qualitative Comparative Analysis, a method that systematically examines the logical interrelationships among categorical variables. The project addresses two central problems in the organization of science: how might research organizations be structured to facilitate major discoveries and how can organizations change to accommodate changes in scientific knowledge? The project also builds intellectual connections between the literature on organizations and research in the history and sociology of science, suggesting new avenues for investigation.